Collaborative Research: Experimental and Computational Studies of Turbulence-Chemistry Interactions in Counter-Flow Flames as a Laboratory-Scale Benchmark for Practical Systems

Collaborative Research:

1033204
Gomez

1033246
Pope

Intellectual Merit:

Developing an understanding of the complex interaction of fluid dynamics and chemical reactions in practical combustion devices is of fundamental importance for the development of combustion systems. Achieving this goal will assist in the development of the tools required for predictive modeling of such systems. For modeling to be reliable, systematic validation with an extensive experimental database is indispensable - a task for which practical, and inevitably complex, configurations are not as well suited as simple, well-defined laboratory flames. The PIs propose highly turbulent counterflow flames (TCFs) as a benchmark configuration for this type of systematic experimentation and modeling. They offer significant advantages, such as: flame stabilization without a pilot at high Reynolds numbers; compactness, with significant advantages for highly resolved computations; and versatility, with the ability to access a broad range of combustion regimes, especially those of industrial relevance.

This research is collaboration between Yale and Cornell with further collaboration with Sandia National Labs. A series of experiments on TCFs, operating in both non-premixed and premixed modes, will be performed at Yale and at Sandia; simultaneously at Cornell, the same flames will be tackled computationally using the PDF and the LES-PDF methodologies. The principal contributions made by this research will be: (i) Providing qualitative understanding and quantitative data of TCFs in important but little-explored combustion regimes; (ii) Determining and demonstrating the capabilities of the PDF and LES-PDF methods to model accurately the TCFs in different regimes, and improving the sub-models as necessary. (iii) Providing the understanding and data necessary for TCFs to be a valuable benchmark for the development and testing of turbulent combustion models.

Broader Impact:

Understanding turbulent combustion is important for power generation and propulsion. It is also important for environmental pollution and compliance with regulatory restrictions. The proposed activity will provide a high quality database, including well characterized boundary conditions. This will be made available on the web to the combustion community for further modeling within the framework of ongoing international collaborations, such as the Sandia-sponsored Turbulent Nonpremixed Flames Workshop.

The proposed research will be accompanied with teaching and outreach activities. The PI at Yale has advised female students, award winning graduate students and high school students. He has also trained local schoolteachers in the development of K-12 curricular units focused on energy. He will continue to pursue these activities and integrate them with the project. The Cornell PI has a good track record of recruiting women Ph.D. students and transferring the fruits of his research to industry. Undergraduate students will be exposed to experimentally simple projects, such as flow visualization and phenomenological evidence of various burning regimes.